ABI and CSTA Collaboration to Reach K-12 Teachers from Under-represented Communities at the 2009 Grace Hopper Celebration

The Anita Borg Institute for Women and Technology, working with the Computer Science Teachers Association, is establishing an ongoing working relationship between scientists and technicians and practicing teachers through a series of activities. One hundred K-12 teachers who work with under-represented populations of students will attend the 2009 Grace Hopper Celebration and participate in open forums and presentations. Other products include a white paper designed to instigate a discussion of equity and computer science curriculum; create knowledge sharing opportunities on concrete solutions grounded in teachers' articulated, specific needs; and disseminate these solutions to a broad audience of teachers, STEM practitioners, and interested stakeholders. In addition, the PIs have made provision for evaluation to determine the effectiveness of these solutions in classrooms that serve under-represented student populations.